Upgrading UNAVCO's Global Positioning System Receiver Equipment Pool

9306213 Rocken This award provides funds for the acquisition of nine Global Positioning System (GPS) receivers by the University NAVSTAR Consortium (UNAVCO). The UNAVCO facility is supported by NSF to provide instrument and logistical support for researchers using GPS technique in investigations of global, regional, and local crustal motions where maximum accuracy (in the millimeter range) of baseline measurement is required. Research projects dependent on the UNAVCO facility include investigations of lithospheric plate motions, intraplate strain, strain associated with earthquakes, and movement of glaciers. ***